Acquisition of Bio-Imaging Instrumentation

The proposal requests funds to purchase several instruments for image analysis: an integrated phosphor-imager and direct fluorescence/chemifluorescence system, a film recorder, and a MacIntosh computer and dedicated system laser printer. The three instruments will provide critical image analysis capabilities presently unavailable to Chemistry and Biology Department graduate students, post-doctoral fellows and faculty. Major research projects that will benefit from these instruments are as follows: (1) Definition of structural and energetic parameters for specific DNA binding and cleavage by a restriction endonuclease- a model system for studying enzyme-DNA complexes; (2) Definition of catalytic and recognition mechanisms of bacterial DNA methyltransferases; (3) Mechanisms of iron acquisition by marine micro-organisms; (4) Expression and characterization of double-stranded RNA dependent enzymes under interferon regulation; (5) Definition of the molecular mechanisms involved in Ras function; (6) Structure- function relationships of nuceic acid polymerases and microtubule-binding proteins studied by crystallographic and biochemical approaches; (7) Structure-function analysis of the acetylcholine transporter of synaptic vesicles.